Proposal in Response to NSF RFP No. CPO-99-005 (and Amendments 1 through 4)

Abstract

Leavitt-OPP-0001041

This contract with VECO Rocky Mountain Inc. is for support of the National Science Foundation's Arctic Research Program. The support provided includes critical administrative functions including developing effective and efficient field plans for currently up to 50 projects annually. The contractor then executes a significant portion of the support to those plans, including materials procurement and shipping, construction of field camps, making travel arrangements with specialized none commercial or none scheduled airlift or sealift providers, the operation and maintenance of remote field camps in the Arctic, and providing technological assistance with instruments and global communication solutions.

The contract was awarded on xx December, 1999 with an effective date as 1 December, 1999. Preliminary tasking is to prepare field plans for Arctic research projects for the 2000 "summer" field season.